INtegrating LABoratory Instruction and Assessment (INLAB)

This proposal provides a plan for improving the quality of laboratory instruction and assessment techniques in the middle school. More specifically, the goals of the project are: (a) to improve the quality of laboratory instruction at the middle school level; (b) to increase the use of practical assessment techniques in middle school classrooms; and (c) develop leadership teams to inservice and mentor peers. To accomplish these goals, 30 middle school teachers in the school system in West Lafayette, Indiana will be involved in content, pedagogical knowledge based on a laboratory system which sequences laboratory instruction. The project initially involves 30 teachers that will receive direct training throughout the three years of project duration. During year three, the thirty teachers will conduct staff development programs pyramiding the teacher impact of the project. The pyramiding effect has been estimated at 10 new teachers impacted per original participant for 300 peer- trained teachers (30 x 10 = 300). Thus, the project will impact 30 teachers plus 300 peer-trained teachers for a total of 330 teachers over a three-year period. The ultimate goal of the proposal is to provide a laboratory instructional system, as well as the training necessary to improve laboratory instructional practices and teachers attitudes toward laboratory instruction. The system involves the teachers in three different types of laboratory activities: (1) Confirmation Laboratory Activities which deal with direct experience with materials designed to demonstrate or verify principles or concepts that have been previously discussed and are already part of the teachers experience; (2) Generalization Laboratory Activities which provide teachers with a wide range of experiences that can be used to link direct experience with abstractions - concepts, principles, and theories; and (3) Resolution Laboratory Activities which engage teachers in problem solving situations that will require them to resolve problems in the laboratory. These three different types of laboratory experiences will prepare teachers in ways to sequence laboratory activities in their classrooms to better achieve conceptual understanding of science by their students. Cost sharing is equivalent to 6% of the NSF award.